Mathematical Sciences: RUI: Nonparametric Minimaxity and Admissibility in the Context of Censored Data

In many practical situations, data are censored, that is the observations are only known to exceed particular values. This research explores some basic concepts in decision theory as applied to censored observations. In particular, product-limit estimators are commonly used in the estimation of survival functions; the admissibility and minimaxity of these estimators and variants will be investigated. Undergraduate students will assist with computational aspects, particularly generation of empirical distributions for small samples.